III-COR-Small: Multi-Relational Data Clustering with Probabilistic Mixture Models

With widespread attempts to apply data mining methods to real life
problems, there is an increasing realization that real life data is
often multi-relational, involving observations connecting multiple
entities through a set of relations. A central problem in several
applications involving multi-relational data is to simultaneously find
clusters of objects across related entities, e.g., customer clusters
and related product clusters in e-commerce, movie clusters and related
user clusters in recommendation systems, communities and shared
content in social networks, etc. The key novel aspect is that the
clustering of objects in an entity, such as the set of movies or
users, depends on its relationships with objects in other entities,
e.g., users are similar if they like similar movies, and vice versa.
The primary goal of of this project is to develop a unified
statistical approach to multi-relational clustering and related
problems in multi-relational data analysis. Towards this end, the
project investigates a family of novel statistical multi-relational
mixture models, with focus on additive and multiplicative models for
multi-relational clustering. Due to modularity of design, both
additive and multiplicative models can incorporate domain specific
semantics as well as automatic model selection using appropriate
Bayesian priors. Further, the project investigates efficient
variational inference methods appropriate for discovering latent
multi-relational clusters.

The project significantly empowers the knowledge discovery component
of data mining. Crucial clues to understanding observed data in
several disciplines, including social, biological, and information
sciences, are often spread across multiple related observations. The
project enables a statistical approach to detecting latent structure
in such multi-relational data, which is an important step towards
knowledge discovery from multiple related data sources. The project
plays an important role in developing closer collaboration across
disciplines and broaden participation in computer science. Building
on the increasing awareness regarding the ubiquity of multi-relational
data, the project contributes to the development of appropriate
educational material for the next generation work-force. Further
information on the project may be found at the project web site:
http://www.cs.umn.edu/~banerjee/multi-relational.